HCC: Technology-mediated positive emotions for well-being and consumer product sustainability

The project advances human-centered design research by integrating positive emotion theory into the design of technologies that support well-being and sustainability. Everyday technologies such as smartphones, home appliances, and digital services shape how people feel and behave. Many technologies intended to encourage sustainable behavior rely on fear, guilt, or shame to discourage unsustainable behaviors, such as excessive consumption and energy waste. These negative approaches rarely lead to long-term engagement, and they can deepen the distress of young adults who already feel anxious about environmental problems. The project investigates how everyday technologies can instead draw on positive emotions, such as pride in making a difference, hope from acting with others, and contentment from mindful resource use, so that sustainable daily habits feel enjoyable and meaningful. The project will produce interactive devices and applications that support these experiences, together with practical design guidance and tools for creating consumer products, smart home systems, and learning environments that benefit both personal and planetary well-being. Perspectives of design professionals will be incorporated through co-creative workshops and seminars to ensure that the resulting insights are practically useful for real-world design challenges. The project promotes STEM education for students and practitioners through novel academic and community-engagement programs that encourage critical thinking about how technologies shape behavior, well-being, and sustainability.

The project explores how technology-mediated positive emotions can promote well-being and sustainable behavior as mutually reinforcing outcomes. The project focuses on emerging adults (between the ages of 18 and 25), a group highly sensitive to environmental issues yet struggling to translate their values into consistent action. This research combines methodology from human-centered design research and psychology. This interdisciplinary approach will enable the creation of proper real-life stimuli and formulation of appropriate manipulation check procedures, ensuring the overall research activities’ validity. Mixed research methods will be used, including co-creative workshops, day reconstruction, surveys, focus groups, and in situ experiments. A series of prototypes will be generated and tested to surface situated understandings of user emotions and behaviors, and to examine their appropriateness and associated design decisions. Emotional responses will be evaluated using validated self-report instruments. Following a multidimensional approach, the research assesses both hedonic and eudaimonic well-being. To capture users’ sustainability orientation as a baseline, the project will use Environmental Identity Scale and General Environmental Behavior Scale that assesses technology use patterns across life domains (e.g., energy, food, transportation). To capture how users’ experiences unfold in daily life, this research employs the Day Reconstruction Method. Study 1 will capture roles of everyday technology in facilitating positive sustainable behaviors to produce a validated set of behaviors for which to design. Study 2 will capture development of technology-mediated positive sustainable behaviors. Study 3 will explore the effects of human-technology interactions on well-being and sustainability. Outputs will include an online database and card-set that document effective positive sustainable behaviors, associated design enablers, usage scenarios, and technology examples.